Joint Program on "Nature, Technology and Human Understanding"

9320244 Watson The National Science Foundation has joined forces with the National Endowment for the Humanities and the Library of Congress to foster public attention to the interrelations of science, technology, and the humanities. This award transfers funds to the National Endowment for the Humanities (NEH) in support of this joint effort. The funds will be used for public programs on "Nature, Technology and Human Understanding" sponsored by several of the NEH State Humanities Councils. ***